CyberAI SFS: AI-Augmented Cybersecurity Scholars Program

The Arizona State University (ASU) CyberAI Scholarship for Service (SFS) program will prepare a new generation of government cybersecurity professionals who can operate at the intersection of artificial intelligence, cyber defense, and mission-driven public service. The program will embed AI across the cybersecurity training pipeline, enabling scholars to learn how emerging AI tools can transform threat detection, incident investigation, digital forensics, security operations, and data-driven threat intelligence.

A distinctive feature of the ASU CyberAI program is its AI-augmented cybersecurity training framework, which will combine advanced coursework, mentored research, experiential learning, and professional preparation for government service. The program will develop and pilot new AI-integrated instructional modules in areas such as AI-enabled Security Operations Center analysis, AI-assisted Digital Forensics and Incident Response, and data-driven cyber threat intelligence. These modules will give scholars hands-on experience using AI to reason through realistic cybersecurity problems. The program will also leverage ASU’s established cybersecurity research ecosystem, partnerships, and government-relevant training infrastructure. Through these resources, SFS scholars will engage with emerging CyberAI research challenges, explore rapidly evolving workforce needs, and develop the technical depth, leadership skills, and public-service orientation needed to protect critical digital systems that millions of Americans rely on every day.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.